Computer Interfacing for Advanced Undergraduate Physics Laboratories

James Madison University will purchase two micro-computer based control and data acquisition systems, a digital picoammeter, two autoranging digital multimeters, and a bipolar power supply/amplifier. This equipment will be used to improve instruction in upper division physics laboratory courses, and by advanced undergraduates in independent research projects. Students will use these instruments to control and analyze data from selected modern physics experiments and in some newly developed plasma physics experiments. James Madison University will match the NSF grant with an equal amount of funds.